Small Grant for Exploratory Research: Audio-Post-Processing for Shear Layer Calculation

Under a Small Grant for Exploratory Research (SGER), an experiment will be conducted to examine the acoustic characteristics of a large and complex numerical data set. The intent is to explore acoustic rather than visual post- processing of certain numerical simulations. These simulations model compressible turbulent shear layers at both high and low Mach numbers. Data will be fed into a sound system and listened to. It is expected that differences in organized vortex structures and instability modes will led to identifiable acoustic signatures. The mixing properties of compressible shear layers are important for high speed propulsion systems. The novel diagnostic system may also lead to widely applicable new methods for the post-processing of complex data bases.